ILI: Laboratory for Distributed Computing

9452166 Nelson Given the increasing relevance of distributed network environments and the social needs they serve, distributed programming skills should become part of the undergraduate computer science curriculum. This proposal requests hardware to form a dedicated laboratory for distributed computing, consisting of ten networked workstations. This will support the addition of three courses in the regular curriculum, Computer Networks and Concurrency Control and Recovery, and a senior level projects course. Because students will require system level access to the equipment, this laboratory must be isolable through a bridge from a larger departmental and campus network to which it will be connected. The class Computer Networks will concentrate on low-level network programming, often at the packet level. The Concurrency Control and Recovery will address distributed programming at a higher level by concentrating on the implementation of algorithms from the distributed database tradition. The third class will be a senior projects course in which students realize novel network services typically requiring the execution of remote cooperating clients.